Conference: Inaugural Workshop on Provably Safe and Beneficial AI (PSBAI)

This workshop proposal aims to bring together a wide range of researchers on a very relevant and ambitious topic. It will start a timely discussion on how Artificial Intelligence (AI) can be made safe for public good, and how current advances in the field can become a supporting backbone for that usage. The proposal addresses a topic that has a lot of potential for research but has been very sparsely visited so far in both engineering and computing research communities. Overall, this is a strong workshop proposal which will lead to novel research conversations on two major topics of importance for today’s society – AI and digital ecosystem.

The workshop is to be conducted over 2 days at the University of California Berkeley campus, both in-person and via videoconference, with 50 attendees, including stakeholders across industry, non-profits, academia, government and supra-national institutions, building on years of collaboration and consultation with the EU Commission, World Economic Forum, OECD, UNESCO, and GPAI; and with major foundations including Schmidt Futures, Kavli, Open Philanthropy; and several national governments. The PI has done a good job in putting together an impressive agenda, featuring academia, industry, and government organizations. The proposed workshop has five suggested topic areas including: 1) fundamental topics for safe and beneficial AI systems; 2) Considerations for provably safe and beneficial algorithmic media; 3) Considerations for provably safe and beneficial human-robot interaction; 4) Relevant technical considerations to enable a regulatory framework governing the deployment of powerful AI systems within a secure digital ecosystem; and 5) Considerations regarding fair access.